Research Experience for Undergraduates in the Science of Microfabrication

The National Nanofabrication Facility (NNF) at Cornell University is an interdisciplinary center, the primary role of which is to provide resources and technical expertise to researchers in microstructures science, particularly in the areas of advanced lithographies, nanostructure physics, scanning tunneling microscopy for fabrication and analysis, optoelectronic and electronic applications, microfabrication applications to biology, and related areas. NNF provides equipment, training, and expertise to leading edge research in a "hands-on" environment where the user is responsible for the conduct of that research. This orientation is unique. In keeping with this role, NNF is conducting a Research Experiences for Undergraduates program over a ten week period. In some cases, NNF facilities are used for only a small, but crucial, part of the fabrication or experimentation. Most of the projects would not be possible without NNF resources. In all cases, the attraction of NNF is the quality and open access to central advanced laboratory resources, and the ability to accomplish complex or unusual microfabrication in a routine way.